SHF: Small: Reverse Engineering Variability Implementations

Variability in software systems is very common and important to tailor
the system to user needs and to use the system flexibly in different
contexts without developing a new system from scratch for each context.
For example, embedded systems with resource constraints,
high-performance optimizations, and end-user customizable systems all
exploit variability. However variability in software systems creates a
fundamental tension between (a) reuse and (b) development and
maintenance costs. On the one hand, planning variability upfront enables
systematic reuse and promises to significantly reduce development
effort, costs, and time to market. On the other hand, variability
requires an upfront investment and causes long-term maintenance costs,
because variations give rise to an exponential number of configurations
with potentially intricate interactions. Especially if introduced in
an ad-hoc fashion and not managed appropriately, variability can
increase maintenance costs to a level that outweighs the expected
benefits. This research develops and integrates reverse-engineering
techniques for variability to lower upfront investments for variability
and to reduce the costs of long-term maintenance caused by accidental
complexity of existing ad-hoc variability implementations.

This project revisits how variable and reusable software is implemented
by encouraging lightweight and incremental implementation mechanisms and
providing migration mechanisms for all ad-hoc legacy implementations
common in practice, including conditional compilation (#ifdef),
branches, clones, textual patches, command-line parameters, and
plug-ins. It integrates research from different communities, including
product- line analysis, static analysis, refactoring, concern location,
and architecture recovery toward a common goal of reverse engineering
variability implementations . This integration will allow scaling
research and practice of analyzing and migrating variability from core
calculi to real-world systems of the size and complexity of the Linux
kernel.